Young Scholars Modern Mathematics Program

9553527 Bragin The California State University, Los Angeles will initiate a four and one-half week, commuter, Young Scholars project in mathematics for 50 highly motivated, predominately Black and Latino students entering grades 10, 11, and 12. Students will study mathematics with supplementary computer demonstrations. Additional experiences include research, lectures, and field trips activities. The academic year Saturday sessions on campus involve follow-up of summer activities, student presentations, and science fair participation.